Learning in an Invertebrate

Although invertebrates comprise more than 95% of all animal species, there has been little study of their learning. To remedy this deficiency, Dr. Bitterman has been investigating how honey bees learn. The honey bee is a highly-evolved invertebrate, with sensory, motor, and motivational properties that are unusually well suited to the purpose. The experiments are done primarily with foragers coming of their own accord from nearby hives to laboratory window sills, where they work for concentrated sugar solution, a reward they strongly prefer to the nectar of flowers in the field. The experiments show a wide range of similarities in the way in which honey bees and vertebrates store and use information acquired in the course of their experience, similarities that are surprising in view of the remoteness of common ancestry and the vast differences in brain size and structure as well as in ecology. As the project continues, some of the critical similarities are being probed more deeply to examine the possibility that they may be only superficial, and the scope of the comparison is being extended in a variety of new experiments. The hypothesis suggested by the data already in hand is that the evolution of intelligence has been governed by adaptive constraints much broader than usually conceived, and in good measure perhaps even by a logic of its own.